Center for Quantum Information and Control

Quantum information science (QIS) is the interdisciplinary field that
investigates how to use systems obeying the laws of quantum mechanics
to perform information-processing tasks. This research project
establishes and provides the core funding for a new center, the
Center for Quantum Information and Control (CQuIC), based at the
University of New Mexico (UNM), with a major component of
experimental research at the University of Arizona (UA). CQuIC
brings a quantum-information perspective to physics-based research.
In particular, research within CQuIC applies the new ideas and
techniques of QIS to the state-of-the-art laboratory tasks of
controlling the behavior of quantum systems, so these systems can be
made to do what scientists want them to do, instead of doing just
what comes naturally, and of making high-precision measurements.

CQuIC specializes in the training of graduate students and
postdoctoral fellows for research careers in QIS. Students at UNM
and UA are exposed to a full range of courses and other activities,
which provide an interdisciplinary integration of
information-theoretic and physics perspectives. CQuIC partners with
four external institutions, the Joint Quantum Institute at the
University of Maryland, the quantum information and quantum
nanoscience groups at the University of Queensland, Sandia National
Laboratory, and Los Alamos National Laboratory. These partnerships
focus on a two-way flow of ideas and people, thus expanding the
theoretical and experimental capabilities available to CQuIC and the
partnering institutions. CQuIC is the administrative home for the
Southwest Quantum Information and Technology (SQuInT) Network, which
promotes QIS research at about 20 institutions located mainly in the
US Southwest.